Conference for Undergraduate Women in Physics held Winter 2010

This award provides funding for the Conference for Undergraduate Women in Physics, a two-day conference for undergraduate women in physics taking place on January 16-17, 2010 simultaneously at the University of California, Santa Cruz (UCSC), the Ohio State University (OSU), the North Carolina Research Triangle (NCRT), and Yale University. The conference has two overarching goals. One goal is to give young women the confidence, motivation, and resources to apply to graduate school and successfully complete a Ph.D. in physics or a related discipline. The other goal is to make undergraduate women in physics more aware of the wide range of career opportunities available to them. The conferences will be modeled on previous conferences at the University of Illinois, Urbana (UIUC), University of Michigan, the University of Southern California (USC), and Yale over the past four years. This conference is intended to reach as diverse a group of women in physics as possible, and the organizers are committed to providing access to the conference at minimal cost to the participants to assure that a lack of funds does not discourage participation. This award is supported by the Division of Physics, the Division of Materials Research, and the Division of Astronomical Sciences.